Helping Mathematics Teacher Become Culturally Relevant Educators: New Tools for a New Generation-Conference II

The Maryland Institute for Minority Achievement and Urban Education at the University of Maryland is hosting a conference for teachers and school administrators on Culturally Relevant Teaching (CRT). Teams of teachers and administrators are recruited from across the country. The conference brings together experts in culturally relevant teaching pedagogy with practitioners around the theme of promoting high achievement in mathematics among minority children and of children in urban settings.

The conference plan is based on the most rigorous research on CRT and on the findings of a prior conference. A substantial amount of time is provided during the conference for teachers to develop or modify lessons under the guidance of knowledgeable experts.

The conference will accommodate approximately 100 participants. Following the conference participants will have the opportunity to work with members of the Maryland institute to develop strategies for improving achievement of minority students. Additionally, participants will be invited to participate in ongoing seminars and workshops held regularly at the University of Maryland.